Program to Upgrade Capacity to Record Science Books for Blind Pre-College Students

RFB is undertaking a program that will upgrade its capacity to meet the increasing demand by its blind borrowers, particularly at the pre- college level, for taped books in mathematics, science and technology. To accomplish its program RFB has entered into a partnership with the American Association for the Advancement of Science for the purpose of finding scientists who will record these books as volunteers in our 29 studios across the country. RFB will also establish a new studio to specialize in recording these books. And it has selected several of its established studios to put more emphasis in recording such books. The staff of RFB studios will be increased and trained to handle the additional work involved.